Chloroplast and Nuclear RNA Maturation Mechanisms

All cellular RNA molecules are synthesized as immature precursors bearing 5' or 3' terminal extensions which must be removed during RNA maturation or processing. Despite the fundamental importance of RNA processing reactions,most are not well-understood biochemically. In particular, little is known about these processes in the nuclei and organelles of higher plants. Here this focus is on the key reactions of transfer RNA processing; formation of mature 5' termini by the endonuclease ribonuclease P, and formation of mature 3'termini by as yet uncharacterized endonuclease(s). RNase Ps previously described from eubacteria yeast and vertebrates have an RNA component. In the eubacterial enzymes, this RNA is the catalytic subunit, whereas its role in nuclear enzymes is unknown. Surprisingly, RNase Ps from plant nuclei and chloroplasts appears to lack an accessible RNA subunit like that of eubacteria. In the studies proposed here, the physical structure of purified RNase P from plant chloroplasts and nuclei will be elucidated. In particular the presence or absence of any RNA components in these enzymes will be verified. To understand how RNase Ps with different structures accomplish the same reaction. The basic features of substrate recognition and catalytic mechanism of plant RNase Ps and will be compared to them with those established for eubacterial RNase P.